Mathematical Sciences: Supporting Services Relating to the Promoting and Conducting of a Series of Regional Reseach Conferences in the Mathematical Sciences

This project involves the supporting services for the National Science Foundation/Conference Board of Mathematical Sciences (CBMS) regional conference series in the mathematical sciences. The CBMS supporting services consist primarily of four kinds of annual activities: (1) assisting the National Science Foundation in drafting and publicizing the announcement and guidelines for the Regional Conference proposals; (2) selecting and convening panels of experts to evaluate the proposals and make recommendations to the National Science Foundation; (3) providing an official observer to each regional conference to evaluate its degree of success and make recommendations for improvement of future conferences; and (4) receiving and submitting to the National Science Foundation for approval, manuscripts of the conferences, and then arranging the publication of these manuscripts. The regional research conferences survey current research topics in the mathematical sciences and provide for the exchange of scientific research related to the conference focus.